SBIR Phase II: Transcranial Dynamic Focused Ultrasound for the Non-Invasive Opening of the Blood-Brain Barrier (BBB)

The broader impact/commercial potential of this Small Business Innovation Research (SBIR) Phase II project is to enable new therapeutic strategies to treat brain diseases such a brain cancer. Treating brain diseases is challenging partly because of the existence of an anatomical structure called the blood-brain barrier. This barrier prevents the entry of almost all therapeutic molecules into the brain tissue from the blood. This has led to a devastating impact on the patients and society as a whole. As an example, for glioblastoma, the most common form of primary malignant brain tumors, the five-year survival rate is only 6.8%. Impact and commercial potential include increased treatment options where few or none are available and improved patient outcomes, all with a system that is patient-friendly and designed to cause minimal disruption to the existing treatment workflows. Additionally, the advancement of this project will provide a convenient tool for drug developers to study and develop new drugs without the need to develop a special carrier to transport drugs into the brain.

This Small Business Innovation Research (SBIR) Phase II project involves designing and building a prototype version of a system that can deliver therapies to the brain in a non-invasive and non-intrusive manner. The performance of this system to accurately deliver to regions of interest within the brain will be measured and characterized in a test environment mimicking that of a human head. This project will advance a prototype for use in both clinical and research settings.